Regulation and Functiono f Genes Expressed in the Accessory Gland of Drosophila Melanogaster Males

Despite their crucial role in reproduction, little is known about seminal fluid molecules that are necessary for the survival and activation of sperm and for the stimulation of reproductive processes in the mated female. In Drosophila, many of these critical molecules are synthesized by the male's accessory glands. The PI's laboratory has shown that accessory gland proteins ("Acps") are responsible for short- term changes in the female's behavior after mating, and also play a role in the storage and utilization of sperm by the mated female. They have isolated and characterized 14 Acps. The PI will continue to use a combination of genetic analyses and determination of the fate of each Acp in the mated female, to define the roles of individual Acps in reproduction. The PI will then focus on the mode of action of two Acps. One (Acp26Aa) is believed to act as a hormone that modifies the mated female's physiology and the other one (Acp36DE) is believed to be necessary for sperm storage and function. The sequences and modifications of the Acps that are necessary for its localization and function, and the nature and source of other molecules that modify it or in other ways regulate or affect its function will be determined. This work addresses important problems in reproduction, fertilization, prohormone action and reproductive fitness; it also has potential long-term significance in the area of biological pest control. ***